AGU Chapman Conference on Hawaiian Volcanoes: From Source to Surface

Chapman Conferences are topic meetings sponsored by the American Geophysical Union and are designed to promote opportunities to discuss scientific issues that are not normally available at larger meetings.

Intellectual Merits. Studies of Hawaiian volcanoes have had a profound impact on the development of volcanology, especially over the past century. Frequent eruptive activity and ease of access make Hawaii a natural laboratory for volcanology as epitomized by establishment of the Hawaii Volcano Observatory in 1912. Since then, Hawaiian volcanoes have served as a testing ground for models of magma ascent, storage, transport, and eruption, with results applicable to similar volcanoes worldwide and on other planets.

Hawaii is the paradigm for hotspot volcanism, and is a key element in models of global tectonics and mantle structure. In addition, activity of Hawaiian volcanoes has spurred technological developments that have led to outstanding advances in geophysical methods, leading to state-of-the-art seismic and geodetic networks that have been replicated at many other volcanoes worldwide.

A Chapman conference on Hawaiian Volcanoes will be held August 20-24, 2012, the same year that the Hawaiian Volcano Observatory marks the Centennial of its founding. This occasion provides an opportunity to review the state-of-the-art in understanding of how Hawaiian volcanoes work and to assess the most important problems requiring future research. The conference will occur over 5 days and will include both invited and contributed talks, as well as posters. Topical sessions will be organized to follow a packet of magma from its point of origin in the mantle, through subvolcanic plumbing systems, to eruption at the surface, as a means of discussing observations and models of magma origin, ascent, and eruption. The last day will feature discussion of future research goals in Hawaii, and how work on Hawaiian volcanoes can drive development of new technologies and methodologies in the Earth sciences. One day in the middle of the conference schedule will be devoted to field trips to offer attendees a chance to explore areas of volcanic interest around the island and interact with colleagues in an informal setting. Pre- and post-meeting field trips will also be available to maximize participant exposure to Hawaiian volcanoes.

Broader Impacts. The conference conveners will encourage broad participation and especially hope to attract graduate students and early career scientists, because they represent the next generation of Earth scientists and future leaders in their fields. Interactions between young researchers and experienced scientists will provide a forum for information transfer in both directions. The conveners are considering publishing an AGU monograph entitled “Hawaiian Volcanoes: From Source to Surface,” that will summarize the current state-of-knowledge of Hawaiian volcanism. Insights into the most important research questions about Hawaiian volcanoes will be summarized in a white paper intended to guide future research on Hawaiian volcanic processes and to inform funding agencies that evaluate related research proposals.